CISE Research Instrumentation: Equipment for Experimental Research in Visual Computing

9422069 Jain For the past decade, the importance of visual computing has increased exponentially. Visual computing, which embraces processing, interpreting, modeling, assimilating, storing and synthesizing visual information, now plays a pivotal role in many fields. These include such subjects as: virtual reality, multimedia, robotics, computer-human interaction, scientific visualization and communication. This award is to purchase equipment for supporting a number of ongoing research projects that are committed to this important field. The goal of these projects is to improve visual information computing through innovative experimental research. The equipment which include two visualization systems, one real-time image processing subsystem, and a number of visual sensors will be dedicated to support four individual research projects each addressing a different aspect of visual computing, namely Visual Information Assimilation, Visual Interaction through Gesture Recognition, Modeling and Design of Optoelectronic Visual Information Processors, and Physics-based Visualization of Multipedal Walking Systems. ***